Investigation of Microphysical, Kinematic and Electrical Characteristics of CaPE Thunderstorms

Detwiler/Abstract ATM-9509810 The objectives of this research are to characterize in detail hydrometeor development and the co-evolution of storm circulations, cloud and precipitation particle populations, and electric fields in Florida thunderstorms. Aircraft, radar, satellite, radiosonde, and surface observations of thunder storms from the Convection and Precipitation/Electricity (CaPE) project will be used. This project was conducted near the Kennedy Space Center during the summer of 1991. Results from three CaPE case studies completed under prior funding have shown that ice-phase precipitation, along with upper-level downdrafts, develop prior to the first indications of storm electrification. Negative electric charge is co-located with areas of precipitation at mid-levels in these storms in their early to mature phases, although the charge carriers were not identified. Data from more than a dozen additional research flights is available to refine and generalize preliminary conclusions reached in these three completed studies. These data will be composited to yield a more general picture of evolution in Florida thunderstorms. In collaboration with other workers, interpretation of multi- parameter radar signatures will be refined using intercomparisons with in situ aircraft microphysical measurements. Further analysis of airborne electric field and airframe discharge data will be undertaken to reduce uncertainties in electric field retrievals from in situ airborne measurements.